Surface Electrochemistry

The surface structure, composition and molecular characteristics of electrode surfaces will be investigated using a range of powerful surface science methods. In addition to the widely used methods of Auger electron spectroscopy, low energy electron diffraction (LEED), Fourier transform infra-red spectroscopy (FTIR) and electron energy loss spectroscopy (EELS), the new method of angular distribution Auger mapping (ADAM) will be employed. This experiment obtains the intensity information over a wide range of angles of emission using a unique apparatus. ADAM has the promise to provide important spatial information about electrode surfaces. Systems to be studied include the effects of immersion of electrodes into ionic solution; the electrodeposition of metals, alloys and chemical compounds; anodization and electrodissolution; electrosorption of organic molecules; and chemical vapor treatment at atmospheric pressure. %%% The research, in the general area of Analytical and Surface Chemistry, focuses on the use of surface science to investigate electrochemical problems. The work promises to lead to an enhanced understanding of the chemical and electrochemical reactivity of electrode surfaces. This understanding is necessary to properly utilize electrochemistry in many practical applications such as catalysis and corrosion.